REU Site: Characterization of Advanced Materials

Washington State University continues operating a Research Experience for Undergraduates (REU) Site. The REU Site has been in operation since 1999. The theme of the proposed REU Site is Characterization of Advanced Materials. Students participate in research projects that use modern characterization techniques to understand the relationships between the processing, structure and properties of materials. These projects are done under the supervision of faculty in the School of Mechanical and Materials Engineering, Department of Chemistry and Department of Civil Engineering. Twelve undergraduate students are recruited nationwide every year for a ten-week summer research experience, including students from community colleges in the region. In addition to participating in individual research projects, students attend a series of teaching workshops on the use of various characterization instruments and tools.